PYIA: Extending the Application of Direct Transient Stabil-ity Analysis of Large Power Systems (REU Supplement)

The objective of this project is to extend the range of studies that can be performed using direct stability analysis techniques. The transient energy function method (TEF) has been used successfully in direct transient stability techniques assuming a classical power system model. The classical model is satisfactory for the initial analysis of many power system stability problems. However, a large set of problems of critical concern to utility planners and operators requires more sophisticated models to obtain realistic results. Hence, there is a need to develop direct methods using more sophisticated models. This project will consist of extending the classical model in the following areas: including detailed synchronous machine models and effect of fast exciter systems, incorporating HVDC terminal effects remote from disturbances, and modeling the effect of relay operations.